Mathematical Sciences: The Geometry of Harmonic Measure

In this project the principal investigator will continue his fine work on problems that lie on the border between harmonic analysis and partial differential equations. The main goal of his work is the description of harmonic measure for the exterior of a convex domain. A key question is to provide a bound on the second variation of the electrostatic capacity that is analgous to the Brunn-Minkowski inequality for the volume. Other topics for study are the behavior of nodal lines of eigenfunctions of free boundary problems, mixed boundary value problems in Lipschitz domains and L-p estimates for Airy-type operators. The two subjects of harmonic analysis and partial differential equations figure prominently in the branch of mathematics known as classical analysis. Indeed, harmonic analysis grew out of Fourier analysis, which was developed to help solve various types of partial differential equations. In this project the principal investigator will work on problems that span both of these areas. In particular, he will try to describe the harmonic measure of the exterior of a convex domain and he will study various types of boundary value problems using techniques from the theory of harmonic functions.